Committee on Atomic, Molecular and Optical Sciences (Physics)

It is proposed that the NSF provide partial support for the NAS Committee on Atomic, Molecular, and Optical Sciences (CAMOS) for a three year period. CAMOS provides a focus for this broad and diverse field: 1) Providing a source from which federal agencies can obtain technical advice and assistance. 2) Conducts and publishes studies concerning atomic, molecular and optical science and its multidisciplinary connections to other fields. 3) Provides a forum for discussion among atomic, molecular, and optical scientists, thereby providing a unifying mechanism. 4) Provides an interface for communication among the atomic, molecular, and optical science communities and federal agency program directors who fund research.